CAREER: Algebraic Combinatorics and its Applications

This CAREER proposal includes problems related to algebraic and enumerative
combinatorics and its applications to geometry of polytopes, representation
theory, inverse boundary problems, and algebraic geometry. The proposal
discusses permutohedra and their generalizations, which are certain convex
polytopes related to Coxeter arrangements. The PI suggests three different
approaches to calculation of volumes and Ehrhart polynomials of such polytopes.
He introduces new mixed Eulerian numbers with remarkable combinatorial
properties. Various generalizations of permutohedra include Stasheff's
associahedra, Pitman-Stanley polytopes, polytopes related to wonderful
compactifications of De Concini-Procesi, etc. There are intriguing parallels
between these polytopes and generalized associahedra related to
Fomin-Zelevinsky's theory of cluster algebras. The next part of the proposal
is related to Schur positivity. The PI with collaborators have recently
resolved several open Schur positivity problems that attracted a lot of
attention, including Fomin-Fulton-Li-Poon's conjecture and Okounkov's
conjecture. They plan to apply their techniques to prove several other
prominent conjectures. The proposal mentions a general Schur positivity
conjecture involving a mysterious polytope, which might have relations with the
Klyachko cone and lead to new interesting combinatorics. The proposal
discusses the inverse boundary problem for networks and its relations with
total positivity. Networks parametrize the totally positive cells on the
Grassmannian. This construction has links with Fomin-Zelevinsky's results on
double Bruhat cells and with their theory of cluster algebras.

This CAREER proposal describes new initiatives in research and education in the
area of combinatorics. Combinatorial techniques play an increasingly important
role in other fields such as algebra, geometry, computer science, probability
theory, physics, biology, cryptography, etc. Both the research and the
educational components of the proposal aim on applications of combinatorics.
The proposal discusses several important combinatorial problems on the
frontiers of modern mathematical research. These problems involve counting or
enumerating various discrete mathematical objects, say, vertices of a polytope
or pieces in a decomposition of a complicated geometrical object into simpler
objects. These problems would help to understand, clarify, and simplify
nontrivial mathematical concepts and constructions. The proposed research
project would have impact in several fields, including algebraic geometry
(which studies geometrical objects using algebra), representation theory (which
studies symmetries), theory of convex polytopes, and theoretical physics. The
educational part of the proposal includes plans for a new course on modern
applications of combinatorics. The PI is planning to encourage graduate and
undergraduate research. Combinatorial problems are appealing for undergraduate
students because these problems are intuitive and easy to formulate but yet
quite challenging. The proposal describes plans for using interactive visual
tools and demos, applets, and animations in teaching future combinatorics
courses.